REU: Research Experience for Undergraduates in Behavioral Science

This award will provide continuing support to the University of Minnesota for the summer program of undergraduate research experiences in the behavioral sciences established in 1987. The ten-week program will emphasize student participation in the research activities of faculty affiliated with the Center for Research in Learning, Perception, and Cognition in the College of Liberal Arts. Eight undergraduates will participate, half from private liberal arts colleges in the state of Minnesota and half from the University; they will be expected to have completed their sophomore or junior years. Students will: (1) assist with a faculty member's research including opportunities to work as a member of a research team, (2) complete an independent research project, the final products of which will be a written report and a presentation to peers and participating faculty, and (3) participate in a multidisciplinary seminar. Seminar activities include presentations by program faculty and faculty in related areas campus wide, laboratory tours, and lectures on research tools and design. The program will therefore include opportunities for the students to learn specific research methods, to apply these methods in the context of their own research, and to examine broad conceptual and methodological issues relating to psychology and the cognitive sciences. Participation in social/cultural events as well as common housing in a University dorm will help foster a strong community of students.